Mathematical Sciences: Integral Points on Curves and Surfaces

This is an award that was originally made to Boston University for Professor Joseph Silverman. Professor Silverman has transferred to Brown University and will continue the research started at Boston University. The original abstract is still valid.